The U.S. Ice Core Research Planning Workshop (U.S. Ice Workshop)

This grant is in support of a workshop to develop a global plan for U.S. ice core research with special emphasis on the need to retrieve glacial/interglacial records from Antarctica and Greenland as well as more recent paleoclimatic records from a global array of shallow and intermediate depth cores. This effort is in response to recommendations by the National Academy of Sciences-Polar Research Board ("Recommendations for a U.S. Ice Core Program," 1986). The workshop is planned for June of 1988 at the University of New Hampshire and will bring together experts in all phases of ice core research. The meeting is an important aspect of the polar glaciological research program and will point to new directions for future research in paleoclimatology.